Workshop on Generalized Inverses-Computational Techniques and Applications, New Delhi, India, December 11-16, 1992, Award in Indian and U.S. Currencies

Description: This proposal seeks group travel support under the US-India Cooperative Science Program for invited speakers from the U.S. to participate in the workshop: "Generalized Inverses- Computational Techniques and Applications". The workshop will be held at the Indian Statistical Institute (ISI) in New Delhi, on December 11-16, 1992 and is co- sponsored by ISI and the International Linear Algebra Society. ISI is a major research center for Statistics, Mathematics and Economics where pioneer work on generalized inverses was done by C.R. Rao and S.K. Mitra The center continues to attract eminent scholars of international reputation. The workshop will include: presentations by outstanding scientists on contributions to date in the theory of generalized inverses and their applications to Statistics and Electrical Engineering, contributed papers giving the latest developments in the field of generalized inverses by active researchers, and panel discussions to identify the directions of future research and to list open problems. Scope: The air travel of six US scientists will be supported by this proposal. As the bulk of research in generalized inverses has shifted away from the US to India, Europe, Japan and China, this workshop will be an opportunity for US scientists to share their knowledge with the rest of the world and to take stock of the prevailing situation and determine new research directions. The workshop will be a boost for research in generalized inverses and their applications.